RUI: Molecular Dynamics of Rough Surfaces in Adsorbed Films

9502726 Petterson This is a Research at an Undergraduate Institution project that will investigate the dynamics of rough or surface- melted surfaces. The project is intended to provide educational opportunities to students, as well as address questions of scientific importance. The initial experiments will be focused on the behavior of methane adsorbed on a magnesium oxide surface. The methane will be probed via its nuclear magnetism. The nuclear magnetic resonance response of carbon atoms in the methane molecule can report on the surface motion of the methane, and also provide information on the surface structure of the methane. The experiments will contribute to the basic understanding of the nature of roughening of a surface, and the process of surface melting. Undergraduates will be involved in this project. They will acquire valuable laboratory skills, and be exposed to topics of current scientific and technological importance. %%% This is a Research at an Undergraduate Institution project that will investigate the dynamics of rough or surface- melted surfaces. The project is intended to provide educational opportunities to students, as well as address questions of scientific importance. The initial experiments will be focused on the behavior of methane adsorbed on a magnesium oxide surface. The methane will be probed via its nuclear magnetism. The nuclear magnetic resonance response of carbon atoms in the methane molecule can report on the surface motion of the methane, and also provide information on the surface structure of the methane. The experiments will contribute to the basic understanding of the nature of roughening of a surface, and the process of surface melting. Undergraduates will be involved in this project. They will acquire valuable laboratory skills, and be exposed to topics of current scientific and technological importance. ***